Constraining Thermal Thresholds and Projections of Temperature Stress on Pacific Coral Reefs Over the 21st Century: Method Refinement and Application

Sea surface temperature (SST) across much of the global tropics has increased by 0.5-1 degrees C in the past 4 decades and, with it, the frequency and geographic extent of coral bleaching events and reef mortality. As levels of atmospheric CO2 continue to rise, there is mounting concern that CO2-induced climate change will pose the single greatest threat to the survival of coral reefs. Averaged output of 21 IPCC climate models for a mid-range CO2 emissions scenario predicts that tropical SSTs will increase another 1.5-3 degrees C by the end of this century. Combined with current estimates of thermal thresholds for coral bleaching, the outlook for the future of coral-reef ecosystems, worldwide, appears bleak. There are several key issues that limit accurate predictions of the full and lasting impact of rising SSTs. These include (1) level of confidence in the spatial and temporal patterns of the predicted warming, (2) knowledge of thermal thresholds of different reef-building coral species, and (3) the potential for corals to increase resistance to thermal stress through repeated exposure to high temperature events.

New skeletal markers have been developed that constrain the thermal thresholds and adaptive potential of multiple, individual coral colonies across 3-D space and through time. The method, based on 3-D CAT scan reconstructions of coral skeletons, has generated initial data from two coral species in the Red Sea, Great Barrier Reef and Phoenix Islands. Results showed that large, abrupt declines in skeletal growth occur at thresholds of accumulated heat stress defined by NOAA's Degree Heating Weeks Index (DHWs). In addition, there was a significant correlation between host lipid reserve, an independent measure of stress and mortality risk, and rates of skeletal growth. Because the coral skeleton archives the history of each coral's response to and recovery from successive, documented thermal anomalies, this approach pinpoints the thermal thresholds for sub-lethal impacts, the recovery time (if any) following a return to normal oceanographic conditions, and tests for a dampened response following successive events, indicative of acclimation.

This research program builds on initial work, focusing on method refinement and application to corals on two central Pacific reefs. With contrasting thermal histories, these reefs are considered at greatest risk from future ocean warming. In parallel, new experiments will be run on an ocean general-circulation model (OGCM) that is well suited to the tropical Pacific and of sufficiently high resolution, both horizontal and vertical, to maximize projections of thermal stress on specific central Pacific Reef sites over the next few decades. The OGCM output will also be of sufficient temporal resolution to compute DHWs, thus addressing a major limitation of the direct application of global climate model output (as archived for the IPCC AR4) toward coral-reef studies. Specifically, this study will: (1) collect multiple new, medium-length (15-30 yrs) cores and branches from two dominant reef-building species at 1-30m depth in the Gilbert and Jarvis Islands, central tropical Pacific; (2) apply 3-D CAT scanning and image analysis techniques to quantify systematically thermal thresholds, rates of recovery and resilience for each species, at each reef site and with depth; (3) quantify energetic reserve and symbiont genotype amongst thermally more- and less- resilient colonies, establishing a quantitative link between calcification stress and mortality risk, and determining the physiological basis for calcification responses to thermal stress; (4) use an OGCM specifically tailored to the tropical Pacific to produce a dynamically consistent set of forecasts for near-term climate change at the target reef sites; and (5) combine coral data with model output and refine the projected thermal stress forecast, in degree heating weeks, for corals in this central Pacific Island group over the 21st century.

This project includes funding for a young investigator, a postdoctoral investigator, a graduate student, and several undergraduate researchers through WHOI's summer student fellowship program. Because the method of quantifying thermal thresholds and recovery rates can be applied relatively efficiently and inexpensively to generate data for many different coral species across large spatial scales, an anticipated successful outcome will promote collection of similar data from other Pacific reefs. This data "network," when combined with the weekly-resolved OGCM output, will enable species and depth-specific projections of coral responses to thermal stress on individual reefs across the tropical Pacific over the 21st century. All research will be presented at national and international meetings and at public venues; results will be summarized on websites, and will be integrated into undergraduate and graduate courses by the Co-PIs.